A Computer Based Curriculum for Probability and Statistics

This project will create and research a computer-based curriculum for probability and statistics targeted primarily for the high school. The development and evaluation of the materials will be based on past and ongoing research of student conceptions of probability and statistics. The curriculum will focus on the development of concepts, many of which have proven difficult to teach in standard courses. The program will consist of a software package together with a set of laboratory activities organized into three modules, "Chance", "Chance Plus Rules", and "Chance Plus Structure". In the majority of these labs, students will use the computer to build sampling models, draw large random samples, and analyze the resultant data. These computer simulations will provide the empirical data against which students will evaluate their intuitive predictions and theories. Students will eventually build models to study complex phenomena consisting of both probabilistic and deterministic components. Small components of the curriculum will be evaluated and revised based on clinical interviews with individual students. Larger components will be tested in a number of sites involving a diversity of student populations.